CISE Research Instrumentation

This award is for an upgrade of a MasPar MP-1 massively parallel computer to enable computational applications in information sciences and systems, and in condensed matter and material physics. Research projects include compression of high-definition images, distributed decision-making with very large numbers of sensors, Monte Carlo simulations of glassy systems, and numerical studies of quantum disordered systems. The acquisition of MasPar machines has allowed a number of academic, government and industrial organizations to achieve exceptionally fast computing performance for scientific and engineering applications amenable to massive parallelism. Princeton University plans to use the machine for several research projects in the Electronic Materials and devices group, and in the Information Sciences and Systems group.